Microstructural Behavior and Modeling of Particulate Media Structures Interface

9302281 Bosscher The objectives of this proposal are to advance the understanding of the interface behavior based on micro structural studies and to develop a quantitative theory and a constitutive law capturing the physics of the interface behavior. The constitutive law will be couched as an incremental history dependent law applicable for numerical simulation. The quantitative theory will be developed based on experimentation and the use of distinct element method (DEM) simulations. The use of massive parallelization of the DEM code will enhance the number of particles and the complexity of particles and surfaces that can be modeled. Experimental verification of the derived interface constitutive law will also be performed. *** g ` e g ! ! F g g 3 Times New Roman Symbol & Arial Bookman Õ Õ Õ " h 'bı & e - Abstract jina reed jina reed